Symposium on "Lithium Ion Battery Materials - Current Issues," at Annual Meeting of the American Crystallographic Association

The lithium ion battery is a promising technology for electric energy storage. Several materials-related issues are the subjects of intense research. These issues include the design and synthesis of electrolytes with enhanced conductivity, and the interaction between charge carriers and electrode materials. Detailed and accurate materials characterization is key to understanding the processes that underlie these phenomena.

To inform the scientific community of the current issues that control the progress of battery technology, to provide a platform for the exchange of ideas, and to stimulate new directions of research in this field, a symposium dedicated to battery materials will be held at the Annual Meeting of the American Crystallographic Association, July 22-27, 2000, in St. Paul, MN. An outcome of the conference we expect to develop a vision and important directions for research in lithium ion battery technology.